Continuous Time Stochastic Processes in Economics and Finance

9309699 Scheinkman This project consists of two parts: (1) the study of dynamic problems with irreversibilities similar to the dynamic decision making problems encountered in negotiating international agreements to avoid future environmental catastrophes, and (2) the development of methods to evaluate and estimate nonlinear continuous time models using discrete time data from financial markets. The two parts of the project are related in that the methods used to study environmental irreversibilities are extensions and applications of the models developed for financial markets. Much of the research on biodiversity, ozone depletion and other aspects of environmental policy focuses on the irreversibility of certain actions that alter the environment. Part of this project develops new mathematical tools to study the effects of irreversibilities like those present in many environmental questions, on dynamic problems. This research should provide theoretical insights as well as numerical methods that could be helpful in evaluating the value of environmental preservation. Continuous time formulations been used to produce theoretical insights in a variety of questions in finance and economics and are also used, in practice, to yield pricing and hedging strategies in financial markets. Much less has been done to develop methods to evaluate and estimate these models when only discrete time observations are available, as is the case in economic applications. Part of this project aims at filling this gap by developing a series of methods to evaluate nonlinear continuous time models using discrete time data. The research will provide theoretical justification for the proposed methods, and also use them to evaluate alternative models of the determination of securities prices. The objective is to increase our understanding of several of the determinants of securities prices and their volatility. ***